Observational and Numerical Modeling Studies of Downdrafts Within Precipitating Convection

Downdrafts from mature convective storms have been shown to be important to a wide range of meteorological phenomena. For example, at smaller spatial scales, intense downdrafts have been shown to be a hazard to aviation ("microbursts") and to be very important in determining the nature and timing of new convective activity. Over larger areas, it has been shown that incorrect parameterization of stormscale downdrafts in numerical models often leads to substantial errors in quantitative precipitation predictions. The Principal Investigator will study the characteristics and formation mechanism of local downdrafts in convective storms. One area of investigation will be to test the hypothesis that downdrafts are initiated and controlled mainly thought melting and evaporation processes near the earth's surface. He proposes that in response to low altitude downdrafts, entrainment aloft can be induced. This explanation differs from earlier studies which suggest that entrainment into convective storms at mid levels might be responsible for downdraft formation. The Principal Investigator will use numerical modelling and previously collected observational data to accomplish his research goals.